IUCRC Evaluator at CPAC and CADAR (Center for Analog/DigitalApplications Research)

The purpose of this grant is to provide direct funding, for a period of three years, of a three years, of a National Science Foundation (NSF) Center Evaluator at two Industry/University Cooperative Research Centers. One is the Center for Process Analytical Chemistry (CPAC) which is located at the University of Washington (UW). The other is the Center for Analog/Digital Applications Research (CADAR), a joint center which is located on the campuses of Washington State University and University of Washington. The evaluator will be responsible for implementation of the NSF Center Assessment Program at each of the centers. This is a series of three related studies designed to identify the factors that may contribute to and/or inhibit attainment of each center's goals and outcomes. Included among the three basic studies are: a) developing comparative descriptions and conducting analyses of each center's developmental history in the form of annual historical profile updates; b) conducting intermediate as well as long-term studies of each center's organizational effectiveness using faculty and sponsor outcome assessment survey instruments, and; c) conducting exit interviews of any industrial sponsor that terminates their affiliation with either center. The principal investigator is a recognized evaluator and eminently qualified to study the Industry/University Interaction at the above two center.